Growth and Protein Expression of Saccharomyces Cerevisiae

Flow cytometry and slit scanning measuring technology will be developed and applied to analyze growing populations of Saccharomyces cerevisiae cells at the single cell level. While conventional flow cytometry provides data on the joint distribution of specific single- cell properties at rapid rate, the slit scanning measuring technique can provide information on low resolution spatial distribution within individual cells of certain properties such as cell size, DNA, or protein content. With this technique, properties of mother cell and growing daughter cell can be quantitated during the cell cycle and during asymmetric cell division. In particular, with this novel experimental approach, information is obtained on frequency distribution functions of properties within the total cell population, within the subpopulation of dividing cells, and within the group of cells that has been formed by cell division. These experimental data, in combination with population balance equations, allow rapid determination of single-cell rates of accumulation of any component detectable by flow cytometry. The work includes refinement of the measuring technique, refinement of cell preparation, and immunofluorescence staining procedures to detect specific intracellular components in Saccharomyces cerevisiae cells. In particular, an immunofluorescence technique suitable for flow cytometric quantification of bacterial - galactosidase is used as a model system to study the dynamics of expression of a single protein in S. cerevisiae at the single cell level and under varying environmental conditions. In addition, single cell growth models are being developed to support the experimental work. For the design of a production process that utilizes microorganisms, it is important to know the composition of the microorganism and how this composition changes over time. Flow cytometry represents a sophisticated, laser based measuring technology that permits determination of the composition of single cells at rates up to 5000 cells per second. Within a fraction of time one obtains the information on how the single cell composition is distributed within a cell population. Knowledge of such distributions provides a detailed insight into the properties of entire cell populations that are determined by the contribution from each individual cell present in that population. For instance, cell to cell heterogeneities are particularly pronounced in the case of unstable recombinant cell populations because of genetic differences and because of different developmental stages of individual cells.